Dissertation Enhancement: Characterization of High Molecular Weight Dissolved Organic Matter in the Pearl River Estuary

0084154
Chen

This is a one-year dissertation enhancement proposal submitted by Ms. Julie Callahan, a doctoral candidate in Environmental, Coastal and Ocean sciences, University of Massachusetts at Boston and her advisor, Dr. Robert Chen. This project involves collaboration with Professor Minhan Dai, Xiamen University, China. This study will characterize high molecular weight dissolved organic matter in the Preal River Estuary. This project will provide an excellent opportunity for comparative studies of two large river systems, the Mississippi River plume and the Preal River Estuary and will fill a need for information on cycling of dissolved organic materials in these estuaries. This will also provide opportunities for Ms. Callahan to carry out Ph.D. research in China, and for her to gain valuable field research experience there. The Natural Science Foundation of China and the NSF jointly support this project.